Travel Funds to EQUIFASE 2002 Conference, October 12-16,2002, in Foz de Iguazu, Brazil

This grant is a travel request to enable eleven US researchers to attend the VI Iberoamerican Conference on Phase Equilibria for Process Design (EQUIFASE 2002). This meeting will be held from October 12 -16, 2002 in Foz de Iguazu, Brazil and is being organized by Professor Marcelo Castier (Universidad Federal do Rio de Janeiro, Rio de Janeiro, Brazil) and Professor Esteban Brignole (PALPIQUI, Universidad Nacional del Sur, Bahia Blanca, Argentina). The purpose of the VI Iberoamerican Conference on Phase Equilibria for Process Design (EQUIFASE 2002) is to share research results in the area of phase equilibrium and thermodynamics. The conference organizers are anxious to include researchers from North America who traditionally have not attended this meeting. This travel grant will include full funding for two young researchers and partial funding for nine senior researchers. The proposal for this grant is a direct result of the Pan-American Workshop to Promote Collaboration in Chemical Engineering that was held in Rio de Janeiro in August 1998.